TOGA: McIDAS Operational Applications for TOGA COARE

This research will provide critical operational support and related scientific applications for TOGA/COARE using McIDAS (Man- computer Interactive Data Access System) workstations. The TOGA/COARE Intensive Observing Period (IOP) will take place in a data sparse region of the far Western Tropical Pacific from November 92 through February 93. TOGA/COARE must rely on satellite imagery and global circulation model (GCM) analyses and forecasts for making daily operational decisions during the IOP. McIDAS is the most advanced tool for synthesizing satellite imagery with thermodynamic and dynamic fields anlayzed by GCM and and regional models. As part of this project, scientific and logistic support will be provided during the IOP with two dedicated McIDAS workstations. Most data will be obtained from the Bureau of Meteorology McIDAS in Australia with some additions from the Wisconsin McIDAS through Internet. McIDAS workstations will be placed at two key locations: the COARE Operations Center in Townsville, Queensland, Australia and in Honiara, Guadacanal, Solomon Islands, where critical operational decisions will be made. Besides providing all available data, analyses, and forecasts during the IOP, this project includes a series of pre-IOP and past IOP studies. The pre-IOP study will compare GCM analyses and forecasts to satellite imagery from the year before COARE to evaluate the models and assess forecasting skill. The past IOP study will focus on summarizing the weather and cloud events of the IOP and completing the GCM evaluations begun in the pre-IOP. The comparisons of analyses and model forecasts made during the IOP.